Robustness Optimization Algorithm for Nonlinear Solid Mechanics Problems

9908393 Saran. Industrial problems, due to their complexity, are
typically very sensitive with respect to variations of design
parameters. This is particularly so in a nonlinear range of behavior.
This research will address the problem in an accurate quantitative way,
based on underlying theories of solid mechanics, systems sensitivity,
and optimization. Starting from the same rigorous solid mechanics
equations as in deformation analysis, a broader problem is formulated,
where the design parameters can vary. Thus, not only the basic
response, but also the resulting variation of the response (system
robustness) to the variations of the selected system parameters, can be
calculated. As a result, the proposed numerical tool will modify the
design variables to obtain the most robust final design. We consider a
large and industrially important class of problems that can be described
by a geometrically and materially nonlinear analysis of deformable
bodies subject to any loading including transient loading with inertia
effects taken into account. Possible applications include metal
forming, crashworthiness, and various impact problems.***
>>>>>>>>>>